A Study of the Altered Nitrogen-Carbon Economy in Selected Oat Plants

Oat plants (Avena sativa 1. lodi) selected for tolerance to rhizosphere infestation by the tobacco leaf pathogen Pseudomonas syringae pv. tabaci experience a spacial alteration of ammonia assimilatory capabilities between different plant organs due to selective inactivation of isoforms of the enzyme glutamine synthetase(GS) by tabtoxinine-beta-lactam (TBL). Enhanced growth is the net outcome of selective GS inactivation. How alteration of ammonia assimilatory potentials in these plants result in increased growth is not fully understood. It is hypothesized that selective GS inactivation alters the nitrogen-carbon economy of the plant by partitioning fixed carbon flow away from sucrose/starch synthesis and into amino acid biosynthesis, and this partitioning leads to increased total carbon fixation rates. This research determines 1) how provision of GS substrates is being met in these tolerant oats, 2) how increased demand for 2-oxoglutarate influences pathways responsible for maintaining tricarboxylic acid cycle integrity, and 3) how elevated leaf GS levels affect total carbon fixation rates. Tabtoxinine-beta-lactam (TEL) is a toxin produced by a tobacco leaf pathogen. It is proving to be a valuable tool for studying plant nitrogen metabolism because it irreversibly inhibits a key enzyme for the assimilation of ammonia into organic nitrogen. The value of TBL lies with the toxin's ability to selectively inactivate certain forms of the enzyme. The net outcome of this selective inactivation is a dramatic enhancement of vegetative growth. This research provides an explanation of how selective inactivation of the enzyme results in enhanced growth. //